A Modular Laboratory and Project-Based Statistics Curriculum

This project is developing a new introductory statistics curriculum for science, engineering, and management students at WPI that can serve as a model for such curricula nationwide. Focusing on the two goals of teaching students to think critically about data and having them experience the role of statistics in scientific investigation, the curriculum has among its key features: division of the material into one-week modules, each based on a laboratory and project experience; a complete restructuring of course content emphasizing exploratory, graphical, and computational approaches to data analysis and inference; and the incorporation of new teaching strategies. The modular course structure allows flexibility in customizing the course to student and instructor needs, and ensures portability to other institutions. The labs and projects provide students with hands-on experience in using statistical methods in scientific experimentation, data production, and data analysis.